CAREER: The MosquitoNet Mobile Computing Project

The research project will investigate operating system and application issues in a network that includes mobile and wireless hosts. Recent advances in wireless technologies and light-weight computers make it attractive to build networks that combine traditional workstations and servers with portable computers. But portables will not achieve equivalence to stationary hosts unless the portables can remain continuously connected to the network, even when changing locations or communication devices. The project, called MosquitoNet, will increase the connectivity of mobile hosts using the following approaches. (1) Enable portable computers to move seamlessly from one communications medium to another; for example, from an Ethernet connection to a wireless modem, without rebooting or restarting applications. (2) Determine the feasibility of hiding the resulting changes in throughput, latency and other network characteristics from applications. (3) Design a simple interface to expose these changing characteristics to applications as necessary. (4) Examine communication device usage patterns for use in implementing battery life extension policies. (5) Develop new file data consistency algorithms for use in a distributed mobile environment where disconnection is allowed but not mandatory. The educational component of the CAREER project will modernize and vitalize the teaching of operating systems and distributed systems at the Stanford University. In particular a new course on wireless and mobile computing will be introduced along with the introduction of new teaching tools, topics and projects into the current curriculum on opepating systems and distributed systems.